Statistical Mechanics of Safety Factors: From Atomic Scale to Structural Scale

Abstract - Bazant, NWn U.

Currently the strength reduction parts of safety factors are
considered as fixed, determined purely from statistics of test
data. However, this is adequate only for purely brittle or ductile
limiting cases. Here the key idea is that, for the transitional
range of quasibrittle structures (concrete structures, fiber
composites, rigid foams, ceramics, rocks, ice, soils, wood, etc.,
and those on approach to nanoscale), the safety factor must depend
on structure size and geometry, and that to ensure tolerable
failure probability, such as one in a million, the safety factor
must be determined from extreme-value statistics based on stress
dependence of activation energy of interatomic bonds. The strength
probability distributions of material elements and of structure,
deviations from power-law size effect, kinks on strength
histograms, and dependence on temperature, loading rate and
duration, are derived and exploited for verification and
calibration. Relevance and practical applications are
demonstrated by stochastic numerical analysis of documented
structural disasters. Major implications for design codes and
practices for quasibrittle structures, as well as reliability of
micro-nano-scale thin films and MEMS, are identified.